Use of Interval Arithmetic in Symbolic Computation

This project explores the use of interval arithmetic in symbolic computation. Interval arithmetic provides an efficient and error free method of combining floating point arithmetic with exact computation. The primary goal of this project is to develop and analyze hybrid interval/symbolic algorithms that provide a practical efficiency gain to time consuming algebraic algorithms such as Collins' Cylindrical Algebraic Decomposition based Quantifier Elimination. Reduced execution times will allow more complicated and interesting problems to be solved. Example hybrid algorithms include Lehmer's multiprecision integer GCD algorithm, real algebraic number sign computation, algebraic number inequality tests, polynomial root bound computation, polynomial real root isolation, and potentially approximate algebraic polynomial GCD calcuation. Preliminary study of some of these algorithms show the potential merits of this approach. An interval arithmetic package will be implemented for the SAC2-C computer algebra library. Using this package all algorithms will be implemented and carefully analyzed empirically and theoretically. The empirical study will be used to investigate the performance gain achieveable through the use of the proposed methods. Furthermore, empirical results will provide useful information on the effectiveness and limitations of interval methods in exact compuation. Programs with detailed documentation and analysis will be made available to the research community.